The Universities Network for Leadership Through Diversity (UN-LTD): Developing a Successful Masters-to-PhD Bridge Program for Broadening Participation in Science and Engineering

Vanderbilt proposes the UN-LTD Partnership as an innovative pathway to the PhD and beyond for substantially broadening participation of underrepresented minorities in STEM. The nucleus of UN-LTD is the highly successful Fisk-Vanderbilt Masters-to-PhD Bridge program, in which students earn a Master's degree at Fisk as a stepping stone to the PhD program at Vanderbilt. Vanderbilt and Fisk are joined in this AGEP by Delaware State University (DSU). Columbia University and neighboring Hunter College will serve as an independent proving ground for transferring and replicating the model. UN-LTD's path to the PhD and to the professoriate emphasizes research engagement and deliberate mentorship by faculty at PhD granting institutions to help students cross the aspirational and institutional transitions. The educational components of UN-LTD include recruitment, graduate training and mentoring, research internships, networking and professional development, along with deliberate preparation for the next level of STEM engagement. With this planning grant they will be developing their program in preparation for a full AGEP.

The goal of their full AGEP program will be to produce at least 10 times the U.S. institutional average number of minority PhD recipients in these disciplines, and to sustain this level in steady state.

UN-LTD's three objectives will be to:
1. Expand the Fisk-Vanderbilt Masters-to-PhD Bridge Program to include all core STEM disciplines at Fisk and Vanderbilt: Physics, Astronomy, Materials Science, Biology, Chemistry, Mathematics, Computer Science, and Engineering.
2. Extend the Bridge Program in partnership with Delaware State University. The resulting Fisk- Vanderbilt-DSU Masters-to-PhD Bridge Program will permit students to transition from the MS at Fisk to the PhD at Vanderbilt, from the MS at Fisk to the PhD at DSU, or from the MS at DSU to the PhD at Vanderbilt.
3. Export the Bridge Program to Columbia University and its neighboring partners, as an experiment in knowledge transfer and institutional-change model portability and adaptability.

With this planning grant, they will pilot four key components of their eventual full AGEP program: (1) A multi-tiered management structure, designed to integrally involve key stakeholders both vertically and horizontally through the UN-LTD alliance; (2) a multi-faceted approach to program evaluation, research, and dissemination, designed to document our successes and failures, track our progress, inform ongoing refinement of their AGEP program, and contribute to the emerging body of scholarship on the science of broadening participation; (3) a discipline-by-discipline expansion of the Masters-to-PhD Bridge Program model; and (4) a concentric mentoring structure, including leadership development for postdoctoral associates
who also serve as near-peer mentors for the AGEP graduate fellows.

Intellectual Merit includes the synergistic areas of collaborative research in biology, chemistry, physics, materials science, astronomy, mathematics, computer science, and engineering that will engage MS and PhD students at the alliance institutions; the refinement, demonstration, and replication of a department level model of institutional change that will be proven to nurture the success and PhD attainment of underrepresented minority students; and thorough evaluation to monitor the approaches, recruiting, experiences, and retention in the various fields to see if there are differences, understand the causes of the differences, identify best practices, and design interventions that overcome problems.

Broader impacts include dramatic increases in the production of well prepared, underrepresented minority PhDs by the participating institutions; rich interdisciplinary interaction and cross-fertilization of ideas among the faculty and students in the diverse STEM disciplines involved in UN-LTD; the enhancement of research capacity and graduate STEM programs at the participating minority-serving institutions; and positive transformations in the departmental culture at the research universities to become more inclusive, supportive, and nurturing of talent.